SDCI NMI Improvement: Monitoring User-Level Grid Functionality and performance Using Inca

National Science Foundation
NSF Software Development for Cyberinfrastructure (SDCI) Program
Office of Cyberinfrastructure

Proposal Number: 0721364
Principal Investigator: Shava Smallen
Institution: University of California-San Diego
Proposal Title: SDCI Improvement: Monitoring User-level Grid Functionality and performance Using Inca

Abstract

This project will enhance the usability and flexibility of a grid monitoring system called Inca. Inca allows grid operators and administrators to track the status of a grid from a user-level perspective, providing automated testing of the services and software that make up a Grid. Inca is a core component of TeraGrid and is used by at least 7 other grid facilities. New features implemented in this proposal include historical data and graphing support, testing against application requirements, and support for a knowledge-base of user-controlled troubleshooting solutions and scenarios. Intellectual merit is addressed by the proposal in the form of new troubleshooting capabilities made available to grid providers. Broader impact is essentially the potential to make grids more reliable and robust through far more effective monitoring.